A Series of Regional Workshops in Chemistry for Undergraduate Faculty

The project, jointly conducted by Georgia State University and the Georgia Institute of Technology, is aimed at improving the ability of faculty at two- and four- year institutions in Southeastern United States to teach a modern program in chemistry. Over a two year period, the project is offering 10 one-week workshops and three 2-day minicourses. Workshop topics include: molecular modeling, chemistry of nucleic acids, polymers, chemometrics, and instrument interfacing. Over the three year period 996 participant days are scheduled. A compilation of all innovations in the course- work at undergraduate colleges resulting from the project will be distributed to all participants.